FINEST: Field-based Instruction for Native American Elementary Teachers

This three-year project will be conducted through tribally-owned Little Big Horn College and on-site at the Crow and Northern Cheyenne Reservations in Montana. It is designed to provide quality training for elementary teachers in the content areas of science and in the discovery method of teaching science. Project staff will work directly with the elementary teachers in the classrooms to implement the discovery approach. Summer institutes will be held for residential training in field-based science, providing opportunities to incorporate the traditional relationship of the peple to the land. This proposal is appropriate for teacher enhancement because it targets teachers of Native Americans in Reservation schools, and is designed to enhance the science knowledge and teaching and to develop leadership skills of these teachers. Non-NSF cost-sharing is approximately 18% of the amount requested from NSF.